REU Site:Undergraduate Research in Nuclear Physics at TUNL

The Triangle Universities Nuclear Laboratory (TUNL) is a collaboration of
Duke University, North Carolina State University, the University of North
Carolina at Chapel Hill, and other institutions in the North Carolina
Triangle area, which has established a diverse research program in low-energy nuclear
physics. TUNL has a strong reputation for providing hands-on experimental
research experience to graduate and undergraduate students, who are involved
in all aspects of nuclear physics experiments. Research projects are focused
on resolving issues in, for example, few-body physics, nuclear-level
densities, weak interactions and fundamental symmetries, photonuclear
reactions, nuclear astrophysics and radiative-capture reactions.

The REU summer program provides undergraduate students with a realistic and
active research experience through the completion of a self-contained
10-week project and through the understanding of the project's integral
contribution to the ongoing research program at TUNL. The broad scope of
activities at TUNL, which involve data collection, data analysis and
instrumentation development, offers the variety in project selection needed
to productively involve students who have diverse academic and research
backgrounds, capabilities and interests. To broaden the research experience,
a special lecture series has been incorporated into the program to increase
the students' exposure to current topics in nuclear physics and to share
details about the research resources at TUNL. At the end of the summer
program, students prepare written and oral presentations that help them to
organize an overview of their research projects.